Development of a Current-Mode CsI Gamma Detector Array for Precision Weak Interaction Experiments

In addition to the strong interaction between neutrons
and protons which binds them in the nucleus, there
is also a "weak" interaction. The precise strength of
this interaction between neutrons and protons is not known, and
current results from different experiment are contradictory.
However, the weak interaction is known to possess the unique
property of causing reactions that look different in a mirror.
We intend to construct a detector which can sense
part-per-billion mirror asymmetries in reactions involving
neutrons and protons that produce gamma rays. This detector
will first be used in an upcoming experiment at the LANSCE pulsed neutron
source at Los Alamos which will detect the mirror asymmetry in neutron capture
on protons. It will be designed and constructed at the Indiana
University Cyclotron Facility.